User-Centered Web Site Design

Computer Science (31)

We are creating a course in User-Centered Design for computer science majors. The intent is not to turn computer science students into graphics designers, but to provide them with the background and tools necessary to enable successful participation in a wide range of projects. In particular, web site design offers a key application area for the techniques taught in this course. Products resulting from our project are: a textbook, instructor's manual and web materials. As well, we are offering workshops as the area of user-centered design is new to many faculty. The intent is to provide a "turnkey" course for faculty use in this new and underserved area of computer science.